A Capillary DNA Sequencer and Denaturing HPLC for Molecular Genetics, Ecogenomics, and Experimental Bioinformatics

A grant has been awarded to Arizona State University under the direction of Dr. Thomas Dowling for the acquisition of a 48-capillary DNA sequencer/genetic analyzer, and an HPLC genotyping and DNA fragment purification system. This instrumentation is essential for efficient completion of the diversity of projects being conducted at ASU, including molecular, evolutionary, ecological, genomic, and bioinformatic studies. Acquisition of this equipment is necessary to handle both increasing demands (number of samples) by existing and new faculty, and will permit investigators to address questions not currently approachable with the existing systems. Research areas that will utilize the instrumentation include: (1) molecular genetics and the evolution of photosynthesis, (2) molecular systematics and evolution of a diversity of organisms (e.g., bacteria, fungi, plants, animals), (3) genetics and management of endangered species, (4) introgressive hybridization and evolutionary genomics, and (5) population biology. The equipment will become part of the DNA sequencing facility at the university. This facility provides support to several educational programs, such as the NSF REU and UMEB programs, which introduce students of diverse backgrounds to careers in science. Central to training these students is exposure to the newest techniques that allow us to obtain previously unobtainable answers. Therefore, addition of this equipment will allow us to better serve the undergraduates and graduates working in our laboratories by exposing them to state of the art technology and techniques.